SGER: Computing with Nano-scale Devices - Looking at Alternative Models

The overall objective of our research program is to build large systems that display basic cognitive behavior, including self-organization, and on-line adaptive learning. There are several major components to our program: (1) Algorithms; (2) Systems integration; (3) Applications; and (4) Implementation. The research proposed here concentrates on the implementation of these systems using molecular scale devices. In particular we are proposing to look at the computational component involved in implementing biologically inspired models using molecular scale devices. Because of the limited funds and time for an SGER, we start with Associative Memory (AM), a simple, but powerful model that forms the basis of most of our more complex models. These approaches could eventually lead to a fundamental shift in how we build and use computers. Beside the intellectual outcomes of the research, the broader impact will be achieved through the dissemination of knowledge of the field of research and the proposed activities through short thesis projects, internal and public seminars, and components in on-going courses.